SBIR Phase II: An adjuvant-based antimicrobial coating (COVID-19)

This award is funded in whole or in part under the American Rescue Plan Act of 2021 (Public Law 117-2). The broader impact of this Small Business Innovation Research (SBIR) Phase II project is to advance a technology that can provide residual antimicrobial activity against viruses, bacteria, and fungi. The COVID-19 pandemic has heightened concerns about microorganisms of all kinds and the limitations of current disinfecting products. The proposed project advances translation of a spray-on technology that, when dried, leaves a thin transparent film sticking both to the surface and to chlorine, thus enabling the surface to be disinfected for up to a month. The film essentially extends the useful life of chlorine-based disinfectants.

The proposed project will continue development of a novel antimicrobial coating that has proven efficacy against viruses, bacteria, and fungi. This project will optimize the product formulation for the film and a complementary solution with reproducible residual sanitation performance. The project will further advance the manufacturing scale-up to ensure large volume cost-effective production capabilities for the product and conduct field trials.